Earth Sciences Postdoctoral Research Fellowship Award

This project will examine the geochemistry of oceanic basalts by isotopic and trace element study to examine detailed geological processes such as magma supply dynamics beneath mid-oceanic ridges, convection in magma chambers, and ridge-plume mixing phenomena. Study areas include the East Pacific Rise, the Mid-Atlantic Ridge, and the Galapagos Islands.